Fast Spectral-Galerkin Methods and Their Applicatons

The PI will develop and analyze fast and accurate spectral methods
for solving a large class of partial differential equations and apply
them to investigate several important problems of current interest,
including in particular the inter-facial dynamics of multiphase complex
flows, stability and dynamics of stratified shear flows and
micro-structural evolutions in advanced materials processing. The
proposed research will result in fast and accurate numerical
algorithms which will allow simulations of three-dimensional
time-dependent problems within a reasonable turn-over time, and
provide capabilities to numerically attack challenging problems
arising from emerging engineering and scientific applications.

As computer simulations are playing an ever increasing role in many
branches of science and engineering and are rapidly replacing much of
the expensive prototyping and testing phases in manufacturing and in
science explorations, fast and robust numerical methods are becoming
an indispensable tool for many scientists and engineers, especially
for computational scientists in fluid dynamics and materials science.
It is expected that our numerical simulations will contribute towards
better understandings of the complex physical and mathematical
problems, and provide valuable information for the designs of advanced
materials and of a space experiment on stratified shear flows.